The Small-Scale Response of the Upper Tropical Ocean to Strong Surface Forcing

9319462 Hebert The response of turbulent mixing in the upper tropical ocean to strong surface forcing, namely westerly wind bursts and rain squalls, will be studied through a hierarchy of numerical simulations and model comparisons to observations. This study is a contribution to TOGA COARE (Tropical Ocean Global Atmosphere Coupled Ocean Atmosphere Response Experiment).